Molecular Characterization of Chlamydomonas Cell Wall Proteins GP3 Alpha and GP3 Beta

Hydroxyproline-rich glycoproteins (HRGPs) of animal and plant extracellular matrices perform a variety of structural, developmental and homeostatic functions. While much is known about HRGP organization and structure, information on HRGP interactions, and their roles in establishment of matrix architecture is fragmentary. The alga Chlamydomonas is uniquely suited for analysis of this important problem: (1) Its cell wall is constructed entirely from HRGPs; (2) its outer wall can be selectively extracted and assembled in vitro; and (3) Chlamydomonas is an excellent genetic system. HRGP interactions will be studied by quantitative in vitro assembly, and molecular cloning of two HRGP genes (GP3A;GP3B). cDNAs encoding GP3A and GP3B will be isolated from an existing Chlamydomonas lambda-gt11 library, analyzed for evidence of sequence homologles with each other and previously cloned outer wall HRGPs (GP1 and GP2), and examined for evidence of conserved repeats. In addition, expression of GP3A/B genes during cell wall regeneration will be studied to determine whether genes for outer wall HRGPs are coordinately regulated. Candidate functional domains will be examined by inhibition of in vitro assembly, using HRGP peptides and anti-HRGP monoclonal antibodies, and mapped by immunotopography. In addition, genomic GP3A/B sequences will isolated from a Chlamydomonas Charon 30 library, and employed for gene structure analysis. If GP3A/B genes prove to be coordinately regulated with outer wall HRGPs, 5' untranslated regions of genomic clones will be examined for evidence of conserved (potential regulatory) sequences. The results of these studies will be of great interest to at least three groups of bioscientists: (1), those interested in the use of Chlamydomonas as a model organism for a variety of cell biological problems; (2), those interested in mechanisms of plant cell wall assembly during growth and development in higher plants, including crop plants, and (3), those interested in general biochemical principles of structure-function relationships involved in protein-protein interactions.